Anthropological Field Research on the Giant Lemurs and Associated Fauna of Madagascar

Recent years have seen an explosion of interest among scientists attempting to understand the long term effects of interaction between humans and plant and animal species which have only recently become extinct in Madagascar. This involves documenting environmental change there through time. Such change is also reflected by variations in primate community structure in different times and places on that island. As humans and the fauna and flora of this island increasingly come into conflict, scholarship relating to the causes of extinction, the proper husbanding of biological resources, and insights about the protection of endangered life forms have gained prominence. Research on extinction processes comes from analyzing the past. Specifically, advances in knowledge of the human-animal/plant interaction can come about by gathering new dates for times of occurence of various animals in the past by finding new and more informative skeletal parts of these vanished animals, especially giant lemurs. This research elucidates their lifestyles and potentially will provide better dated evidence of contemporaneity between humans and giant lemurs. These findings document human predation on the vanished lemurs. Much light should be shed on the timing and causes of giant lemur extinction. Through this award, the team of researchers expects to extend previous collections and produce new publications. The timing of primate extinctions in Madagascar will be further documented by radiocarbon dates for plant and animal fossils from particular sites. A controversy exists as to the primary cause for giant lemur extinction in Madagascar: whether by disease, environmental change, or human hands. The project proposes to discover new dates that should establish the temporal length of the wave of extinctions in Madagascar and better document environmental change. The giant extinct lemurs of Madagascar include most of the kinds of really bizarre relatives of humans ever to have existed on earth. Better anatomical knowledge of these animals will contribute significantly to understanding the extremes of potential adaptive range within our own Order of mammals. Many of these fossils are found in extremely remote parts of Madagascar in nearly inaccessible caves causing the project to make heavy demands on field equipment and to make use of trained caving experts. The project is a continuation of a long time research cooperation between the Cenozoic Research Group of the University of Antananarivo and the Duke University Primate Center.